39th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication, 1995 (May 30-June 2nd, Scottsdale, AZ)

9508418 Smith This award provides support which will enable graduate student participation in the 39th International Conference on Electron, Ion and Photon Beam Technology and Nanofabrication. ***